Biosynthesis of Insect Defensive Secretions

Deuterium labeled potential biosynthetic precursors will be prepared for a study of the mechanism of defensive carboxylic acid biosynthesis in carabid beetles. These precursors will include specifically labeled examples of a number of amino acids, such as L-valine, L-isoleucine, and L-leucine. Exploratory studies are also planned on the biosynthesis of the azamacrolides and related beetle-produced alkaloids. %%% This research on the defensive chemistry of insects should make significant contributions to our understanding of both biosynthesis and chemical diversity. The phyletic dominance of insects on earth is at least in part related to their "skill" in synthesizing a variety of highly effective defensive chemicals. Knowledge of how these chemicals are produced should give insights into insect chemistry, which may in turn have practical implications, and also reveal some new aspects of fundamentally important biochemical mechanisms.